REU: Hydrology/Hydrogeology at the University of Nevada, Reno

The University of Nevada, Reno, with its outstanding interdisciplinary program in the areas of hydrology, hydrogeology and water resources, and with strong affiliation and interaction with the Deseart Research Institute, will conduct this REU program in such a way as to exchange ideas, discuss data, and assist in cross discipline "fertilization". Students will participate for 10 weeks during the summer. Each week students will meet in a seminar format. In addition, during most of the program the students will meet in a semi- informal "research group" setting to discuss their own research results, interact with the other students and faculty advisors and/or have laboratory demonstrations of equipment. Faculty will give overviews of their research programs. Emphasis will be placed on how student and faculty research fits into the bigger, interdisciplinary picture of hydrological sciences. During the last week the seminar and research group meeting will be combined so that the REU students synthesize their information, and practice their communication skills by presenting their results.